Solute Transport and Binding Kinetics in Affinity Chromatography

A novel fiber optic probe will be developed and then used to investigate: (1) the movement of solutes through a support matrix and (2) the intrinsic kinetics of solute binding by immobilized ligands. The probe is an optical fiber employing an evanescent wave to excite molecules at the fiber surface; the electromagnetic field which is the wave penetrates only 2000 angstroms into the surrounding medium, and can be used to study the molecules at the surface of the optical fiber. In the second part of the project, the waveguide will be coated with a very thin film of a support matrix and the rate of movement of solutes of interest through an affinity column will be determined. This will allow separation of mass transfer and equilibrium effects by direct measurement. Thus, the influence of the nature of the support matrix and the method of ligand attachment can be unambiguously determined. This knowledge will be of considerable importance in affinity, chromatography, a separation technique with applications in biotechnology. Affinity-based separations are an important technique for the recovery of biological products. Though extensively studied, most investigations have been at the macroscopic level; for example, some studies have used frontal analysis or pulse techniques from chromatography theory. This project will attempt a study of factors affecting binding constants and mass transfer rates from a microscopic perspective.